Organized Polymer Assemblies on Conducting and Semiconducting Surfaces

9322040 Whitesell Advances in high technology areas such as electrooptical interfaces are currently limited by methods for fabrication and processing of new materials. For example, optical switches require materials with alignment of the polar axis of the composite molecules. The synthesis of highly oriented materials as thin films on surfaces using new synthetic methods and techniques was recently reported. These studies represent the beginning of a major program leading to unique materials with major practical applications. In the area of alpha-amino acid peptides there is a great potential for practical applications of these materials in photostable, electrooptical devices. Furthermore, it is likely that a range of other polymers can be fabricated in new forms as thin films on surfaces. Broadly stated, the goals of this program are: 1. Fabrication: to study in detail ways of preparing alpha- amino acid peptides as ordered arrays on metal and non-metal surfaces, including photolithographic techniques for the construction of nanoscale structures; 2. Physical characterization: to expand knowledge of the properties of these peptide layers, especially as they relate to their unusual, highly polar nature; 3. Extensions: to examine other polymer systems for applicability to ordered growth on surfaces, with the aim of preparing novel thin films heretofore never examined. %%% As a result of this research, methods of fabrication novel, highly oriented thin films from alpha-amino acids will be developed. The films are promising candidates for the construction of optical switches for the next generation of electrooptical devices.